RIA: Integrating Formal Verification with VLSI Design Tools

The research is on linking tools for formal verification of IC designs and those to those used for simulating and fabricating the designs. The PI is working with a verification environment (Hol), a set of design tools based on a hardware description language (Bolt), and a simulation language (Nova). Research being undertaken includes: (1) find a theoretical basis for the translation between the behavioral (verification tool) and structural (design tool) models; (2) develop a formal semantics for Bolt and embed the formal semantics into the Hol system; (3) develop common abstraction mechanisms for Bolt and Nova; investigate parameterized, generic models for circuits to serve as a guide to translation between the verification model and the design tools; develop software for carrying out the combined design and verification process.